Coalescence of Binary Black Holes and Neutron Stars: Computational Contributions to LIGO

***
9800737
Teukolsky
The Cornell group will carry out fully three-dimensional simulations of the coalescence of binary black holes. Important theoretical and algorithmic issues remain to be solved before successful simulations of compact binary mergers can be achieved. The Cornell group expects to overcome most of these challenges in the next three years. They will also perform fully relativistic simulations of mergers of binary neutron stars. These simulations will share much of the code developed for merging black holes.

Gravitational wave forms from the final plunge and coalescence of black-hole and neutron-star binaries are primary targets for LIGO and other gravitational wave interferometers. These wave forms can only be predicted by large-scale numerical computations. If such simulated wave forms are to be made available to the LIGO community in a timely fashion, a significant effort to compute them must be continued now. The Cornell group will collaborate with other researchers to tackle these important problems.
***